CSEDI Collaborative Research: 3D Temperature and Composition Structure of the Upper Mantle Using Seismological and Mineral Physics Constraints

This is a collaborative study between seismologists, mineral
physicists and geodynamicists at UC Berkeley and at the Univ. of
Michigan, the goal of which is to combine observational constraints
and theoretical tools from their respective
fields and investigate large scale 3D variations in temperature and
major element chemistry in the earth's upper mantle directly from the
inversion of seismic waveforms. At the heart of this proposed study
is the conjecture, supported by theoretical
considerations, that the one step inversion of seismic waveforms for
physical parameters such as composition C and temperature T, should
yield more stable results than the standard approach of first
inverting for velocity and attenuation structure separately, and then
interpreting the obtained maps in terms of physical parameters. The
latter is currently inhibited by the poor resolution in 3D upper
mantle attenuation, Q, due to contamination of amplitudes by largely
unmodelled, but
significant, effects of focusing and scattering. The coupled
character of the equations in the one step approach, combined with
the strong sensitivity of amplitudes to T (through anelastic terms)
should offset the approximate character of the available mineral
physics partial derivatives as well as the errors due to inadequate
theoretical treatment of focusing.

The investigators will: 1) invert a global collection of long period
seismic waveforms for T and radial anisotropy, using recent
experimental contraints on dispersion and attenuation in the
uppermost mantle; 2) starting from the model obtained in (1), they
will test their ability to invert for lateral variations in
composition (as expressed in terms of basalt depletion). Partial
derivatives with respect to C and their uncertainties will be
evaluated and provided by the mineral physicists in the team using a
self-consistent formalism which incorporates results from
experiments and first principles calculations. At this point, they
will also incorporate geodynamical constraints to increase
resolution of the compositional component of the inversion. An
iterative procedure will be required at each step in the inversion
process, because of the dependence of various partial derivatives on
temperature, due to the presence of strong attenuation and phase
changes, as well as the large uncertainties remaining in the
estimation of these partial derivatives. The project includes
funding for two students and a post doc, who will be trained using a
cross-disciplinary approach.